Toys and Assistive Devices for the Mentally and Physically
Challenged

9807049
Zelman
The goal of this project is to enlist undergraduate engineering students to provide custom designed toys, assistive devices or software which will enhance the life style or well being of persons who are physically or mentally challenged. These undergraduate students will provide prototype equipment, equipment modification and/or software to meet the unique intellectual and/or physical requirements of a specific individual. These items can not be obtained through any commercial enterprise.

Health care providers will identify a specific need for one of their clients. The engineering student(s) will meet with the principal investigator (PI), health care providers and client to analyze the problem. A detailed design will be produced by the student(s) guided by the PI. After the design is approved by the health care provider, the student(s) will manufacture the prototype/software. The health care provider will approve giving the toy, assistive device or software to the client for whom it was designed.
***